Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

This project incorporates four different applications, which are
related through their common need for high-speed computational
capabilities. The first project involves the simulation of growing
bacterial biofilms. The simulation will couple the extended finite
element method with the level set method in order to capture the
interaction between the growing biofilm and the surrounding fluid
flow. The second project will solve a low Mach number model for
deflagrations in stellar envelopes. By filtering out sound waves from
the model, significantly larger time steps can be achieved than are
possible for full hydrodynamical models, thus making long time
computations feasible. The third project will study the role of
defects in the break-down of ordered structures. Parallelized
Monte-Carlo and Fourier spectral methods will be employed to
investigate defect trajectories in two paradigmatic systems, a
magnetic system and a dynamical system of coupled oscillators in two
dimensions. They exhibit spatially ordered as well as disordered
states. The goal is to identify to what extent various statistical
measures of the trajectories follow universal power laws. The fourth
project will use recently developed importance-sampling methods for
simulating rare events that set the performance of optical fiber
communication systems.

The impact of these projects will be felt across a broad spectrum of
disciplines, and will aid in the training and education of several
graduate students and postdoctoral research associates. In addition
to the scientific areas described above, the training will also
include the efficient use of high-performance parallel computing
architectures. The study of biofilms will improve our understanding
of quourum sensing organisms, and how to treat them. Such organisms
are responsible for a number of diseases, including diseases
associated with cystic fibrosis and deep burn wounds. The study of
deflagrations in stellar envelopes will improve our understanding of
the dynamics of novae of white dwarfs and the nature of X-ray bursts
from neutron stars. Transitions from ordered patterns to disordered
states are observed in many physical systems undergoing phase
transitions as well as in dynamical systems like arrays of coupled
oscillators, various kinds of fluid flow, and optical systems. Often
defects in the patterns are striking features of the disordered
states. The research will elucidate the role the defect dynamics play
in the break-down of the ordered states. The study of rare events in
optical fiber communication systems will lead to the construction of a
set of simulation tools capable of predicting the performance of
lightwave communication systems.